Biological Basis of Behavior Faculty Seminar/Practicum

The Delaware Valley Faculty Exchange is a regional collaborative of colleges and universities designed to break down the isolation too often felt by faculty at undergraduate teaching institutions by integrating them into a regions that contains several outstanding universities, the largest scientific research park in the country, numerous medical schools, teaching hospitals and pharmaceutical companies. A regional faculty seminar for 35 science faculty is being introduced in an attempt to build a set of enduring relationships between research faculty and their colleagues who teach at undergraduate institutions. The creation of a Biological Basis of Behavior; Motivation and Perception Faculty Seminar, with an added summer practicum component for eight of the faculty is a first step. It is expected that the faculty seminar for the natural sciences will provide a regional means of linking teaching faculty with their colleagues, enrich the understanding of teaching faculty of the kinds of research that is going on in the Delaware Valley and at the periphery of their discipline and encourage change in the undergraduate teaching of science. Additional funding is being provided by the University of Pennsylvania and by the individual colleges involved.